Scientist Outreach Meetings

Scientists and engineers are an underutilized resource in motivating students and assisting classroom teachers in teaching science. Pilot programs have demonstrated the value of preparing scientists for what to expect when they enter the classroom, how to incorporate the school curriculum into their program, and how best to reach the goal of making their visits a "never to be forgotten" life changing experience for students. The concept of a Survival Kit is an outgrowth of a Scientist-in-Residence program at the North Carolina Museum of Life and Science which has successfully matched scientists and public school classrooms locally since 1982. The North Carolina Museum of Life and Science proposes to conduct meetings for staff and outside educational specialists to identify the materials and strategies needed to prepare scientists to enter school classrooms. The final report of these meetings will include mechanicals of a Scientist Survival Kit, which can be disseminated across the country, and an evaluation report of how the kits can be and are used. Dr. Mark St. John, Inverness Associates, a professional evaluator noted for his work with nationally significant science education projects, will provide local and national evaluation through surveys and meetings to give a picture of the issues involved in establishing and maintaining programs of scientists in the schools and the role played by the Scientist's Survival Kit in furthering this aim.